Enhancement of Undergraduate Aeronautics Design Teaching

The workshop reviews the aircraft design decision making process, including technological, economic, market and manufacturing considerations, and provides participants with the opportunity to work on a design project of their own. The workshop will also include discussion on how to incorporate the design process into the undergraduate aeronautical engineering curriculum, hence improving the design and the design-teaching skills of engineering faculty.